Waste Minimization, Treatment, and Disposal Program for McMurdo Station

The purpose of the proposed work effort is to provide the unique capabilities of Argonne National Laboratory (ANL) to assist the National Science Foundation in the implementation of a comprehensive and well integrated program for reducing and managing wastes generated by U. S. Antarctic Program activities centered at McMurdo Station. The project is to be structured into phases and conducted over a period of five years. The initial phase is designed to provide for data collection, experimental research, and assessment of pollution prevention and waste minimization opportunities and waste disposal requirement. The results of the first phase of the project will provide for identification of waste minimization opportunities and quantify and qualify the types of waste requiring retrograding back to the Continental U. S. or to be incinerated. Emphasis will be placed on approaches for elimination and minimization of the quantity and toxicity of wastes. Based on the results of the initial phase, wastes that cannot be eliminated will be identified for further handling and treatment, probably via incineration. As such, the likely second phase of the project entails design of the pollution prevention and incineration facilities for sitting in the Antarctic. A significant portion of this effort is expected to be dedicated towards required research in materials and equipment designs capable of handling severe operational conditions and problems concerning various waste handling requirements, emissions control, and fuel conservation. This portion of the program will also include provisions to design a disposal system for ash residue generated by the incinerator, if deemed appropriate. The third phase, procurement, entails selection of an engineering and manufacturing firm to construct the pollution prevention, incineration and/or disposal systems that can be shipped as modules via containerized cargo to McMurdo. The system must be designed to take full advantage of the capabilities of on-site personnel at McMurdo, thus minimizing the influx of personnel to the station. The fourth phase concerns system start-up. It includes shipment of the systems to McMurdo, final assembly, start-up. and testing of the system. The system is to be a "turn-key" operation and include any training required for operation of the system.